Workshop on Multidatabases and Semantic Interoperability

The main objectiveof the workshop is to address technical problems that are to be solved to allow users and organizations to build applications around interoperating data and knowledge bases. This workshop, while dealing with the technology of information access and sharing will also forge a collaboration between industry and science. The proposed workshop will advance futher understanding of the issues faced by industry in utilizing the results of distributed access to databases. For some industrial problems conceptual solutions may be available. For other types of problems the interaction will provide guidance for researchers in identifying and abstracting research issues that must be addressed. Interaction among researchers will help in identifying promising approaches as well as likely deadends. The collaboration and cooperation between basic and application researchers in solving applications problem can then be based on a solid basic research foundation. The workshop's effort in resolving technical problems facing researchers in developing multidatabases is closely related to technical problems described in the recent NSF report (Toward National Collaboratory, NSF 1989). Clearly that problems of Intelligent Agents, Interoperable Data Description, Information Fusion, and Smart Data Gathering listed in that report are very same problems that a designer of multidatabase application should solve to make an application operate with information geographically distributed among various data sources.